Hadron Structure and Lattice QCD

Research in theoretical elementary particle physics will explore and
clarify the internal structure of the particles, known as hadrons, which
interact with each other by means of the strong nuclear force. The
research will use numerical techniques in which the continuum of space is
replaced by a discrete lattice of points. The numerical calculations will
be carried out on the supercomputers at the National Center for
Supercomputing Applications (NCSA). Computer algorithms will be
investigated for the extraction of subtle new physics effects caused by
the admixture of strange quarks in the proton. This can lead to a better
understanding of the internal structure of hadrons and to better
techniques for similar calculations. In addition, an important new
algorithm for simulating quark dynamics will be thoroughly investigated.
This algorithm has the potential to increase the efficiency of such
simulations and to more directly simulate the underlying physics.